Gas-Assisted Displacement of Viscoelastic Fluids in Simple Geometries

9410196 Koelling The objective of this research is to develop a fundamental understanding of a newly developed injection molding process known as gas-assisted injection molding. The prototype problem consists of the motion of a long gas bubble through a tube filled with a viscoelastic liquid. Since many fluids used in industrial processes are viscoelastic, the principal focus will be on the effect of rheology on the bubble penetration and fluid motion near the bubble front. This work is experimental in nature and uses advanced fluid mechanical and rheological techniques. A video imaging system will be used to provide information about the entire flow field and the fraction of liquid deposited in the tube wall will be measured. ***